Teacher Development in Science, Technology, and Society Issues

The University of Wisconsin at La Crosse will provide teachers in rural Wisconsin, Minnesota, and Iowa with intensive training in energy alternatives, chemicals in society, pollution and aquatic biology, and biotechnology. A three-week summer workshop will review scientific principles, describe technological applications of science, and discuss, at length, the responsibilities of society. Forty selected high school teachers from western Wisconsin, southeastern Minnesota, and northeastern Iowa will experience field trips, special lectures by community professionals, and a large variety of appropriate laboratory activities. Curriculum development will be initiated and implemented with the support of the local school districts. During the academic year following the workshop, participants will integrate lessons involving technological applications and related societal issues into existing curriculum in their high schools. The project staff will actively assist participants by visiting schools on a regular basis for observation and support. The workshop staff and participants will share responsibility for the dissemination of related educational materials to as many science teachers as possible through attendance at professional meetings as well as at specially developed "sharing" programs.